Teaching Ethics in Science and Engineering: A Conference tobe held in Boston, MA; February 1993

Dr. Bird is organizing a one and one-half day conference/workshop to be held in conjunction with the annual meeting of the American Association for the Advancement of Science (AAAS) in February 1993 in Boston Massachusetts. The aim of the program is to assist educators and administrators in the development of undergraduate and graduate level programs that address the wide range of ethical concerns associated with professions in the sciences and engineering. The workshop consists of lectures, symposia, discussion groups, demonstrations wand worships designed to provide educators with theoretical foundations and practical tools for addressing issues of professional ethics. The sessions identify the ethical concerns of science professionals in a wide range of sciences including the physical, biological, social and information sciences and engineering. Sessions are also to facilitate discussion within and across disciplines, and provide the opportunity both to clarify issues and to learn about teaching strategies, techniques and tools that have been developed.